Industry Participation in Chemical Engineering Laboratory Module Development

This project offers a novel approach to the design of experiments for the senior Chemical Engineering laboratory by combining computer simulation, the cooperation of industrial sponsors, and a videotaped facilities tour. The resulting laboratory experience is challenging, interesting and educationally effective. An ideal laboratory experiment would duplicate an industrial project, using modern equipment to investigate a complex problem under realistic time and budget constraints. As an affordable alternative to constructing and operating industrial-scale pilot plants, computer simulation and videotapes are combined in instructional modules. The project includes seven modules covering areas such as reactor design, separations, heat transfer, biochemical processing, and semiconductor processing. Institutional support for this project is more than three-fourths of the amount of funds requested from NSF.